Research in High-Speed, High-Resolution Analog-Digital Conversion

Gray The rapid evolution of LSI and VLSI digital technologies has resulted in much wider utilization of digital techniques for signal processing and control applications than in the past. As the level of integration of such systems continues to increase, it has become more and more desirable to implement the Analog/Digital (A/D) conversion function on the VLSI control or signal processing device itself. Great progress has been made in the past ten years in the implementation of analog functions of various types of MOS LSI technology, using NMOS initially, then CMOS as that technology matured, and most recently BiCMOS technology. This research is directed towards new architectures and new approaches to monolithic A/D conversion which more closely approach the fundamental limits imposed by the technology used to implement them. Topics of emphasis include self-calibration techniques for high-speed, high resolution pipeline A/D converters, properties of parallel pipeline, or "systolic" A/D converters, micropower high speed A/D converters using charge transfer signal processing, optimum decoding algorithms and stability and scaling in oversampled A/D converters, approaches to very high speed oversampled A/D converters, and performance limits for the electromechanical sigma-delta A/D converter used for readout purposes in sensor applications.